US-France Cooperative Research: The Environment of T Tauri Stars: Protoplanetary Disks and Collimated Winds

This award will support collaborative research in astronomy between Dr. Gibor Basri, University of California at Berkeley, and Dr. Claude Bertout, Institut d'Astrophysique de Paris, France. The objective of the project is the investigation of the physical properties of T Tauri disks and winds. The T Tauri evolutionary stage represents the first time during a young star's evolution that its surface can be directly observed. At this time the observed spectrum is somewhat abnormal, showing a number and variety of emission lines, and continuum excess in the infrared and ultraviolet. These spectral peculiarities have eluded a unified explanation, though many theories have been proposed. Current work by the investigators has shown that the origin of these anomalies can be understood if these young stars are still surrounded by flat equatorial disks of gas and dust (out of which planets could form). There is evidence that material is continuing to flow through these disks and onto the stars. The systems are also ejecting a considerable amount of material in bipolar flows. In this joint project, the investigators propose to develop and expand this understanding of new stars through a collaboration involving both coordinated observations and theoretical development. They will study both the disks and the winds from young solar-like stars, which should shed light on conditions in our own early solar system and eventually on the prevalence of planetary systems in the galaxy. This project will benefit from the large set of high dispersion echelle spectra collected by Dr. Basri, as well the theoretical expertise of Dr. Bertout.